Track 2 - GK-12 - Engineering in Practice for a Sustainable Future

This proposal describes a Track 2 project developed by the University of Oklahoma. This Track 2 proposal builds upon two Track 1 awards: The Authentic Teaching Alliance (ATA); and the Adventure Engineering (AE). The outcomes from the first two grants include: (1) a dual degree program in engineering education; (2) greater than 50% of the undergraduate Fellows were accepted into STEM graduate programs; (3) four competitive grants were awarded to the ATA teachers and Fellows; (4) over 100 teaching and learning modules were developed of which 30 are available through the Internet on the ATA website; and (5) improvements in the Fellows communications and teaching skills.

The proposed Track 2 has three stated goals: (1) build upon the success of the Track 1 awards, an example being the integration of the 100 units referenced to include more utilization of the engineering processes; (2) create summer engineering academies (SEA) that would serve to disseminate the material and be professional development opportunities for the teachers; and (3) the preparation of Future Faculty through a proposed dual STEM education degree between the Colleges of Engineering and Education. Key to the Track 2 projects is the integration of the two Track 1 activities and programs into one model.